Fundamental Studies of Polymerization Processes

Approximately 60 billion lbs/year of synthetic polymers are produced in the U.S., in a wide variety of polymerization reactors. The ultimate use of the products from these reactors ranges from synthetic clothing to latex paints. Polymers are manufactured in batch, semibatch, and continuous reactors. Polymerization reaction engineering attempts to improve the production of polymers through innovations in process design and control. Three areas of importance include (1) a need to understand the dynamics of the reactors in which large heat release, high viscosity, and difficult heat removal contribute to difficulties in designing effective control mechanisms; (2) the development of continuous liquid and gas phase processes for polyolefin (polyethylene, polypropylene, etc., - commodity polymers) production; and (3) developing new processes for polymers made by polycondensation (fibers and engineering plastics, for example are produced by this method). The PI plans to continue experimental and theoretical research on batch, semibatch, and continuous polymerization reactors in order to develop an understanding of the chemical and physical phenomena occurring, and use this understanding to: (1) Devise improved reactor designs which provide better control control of polymer properties and also minimize difficult dynamics. By quantitatively determining the ranges of operating conditions and system parameters for which oscillations and stability problems arise, design procedures can be developed which satisfy the polymer product specifications and have good economics but which avoid those parameter combinations that lead to difficult dynamic behavior. (2) Develop new types of on-line sensors for the reactor and polymer particles which allow closer quality control of the product and the combination of these new on-line polymer property sensors with feedback strategies to provide control schemes which lead to safe dynamic operation and close control of product quality. (3) Devise new reactor designs for existing and emerging classes of polymer products.